Boundary Mixing over Sloping and Rough Topography: Pathways of Energy Transfer

MacIntyre/ Monismith/ Schladow

Process field studies to document the energy transfer from basin scale modes to
high frequency waves to turbulent motions leading to boundary mixing will be
studied in Mono Lake. Four tasks that are essential for understanding these
energy pathways will be pursued: 1) a determination of the variability of basin-
scale motions using field observations and numerical modeling; 2) a
documentation of the strength, spectral distribution and temporal variability of the
high frequency internal wave field; 3) measurements of turbulent mixing and its
efficiency near the boundary; and 4) observations of the redistribution of mixed
fluid and resuspended sediment from the boundary.